Fifth Edition of the Ethnographic Bibliography of North America on CD-ROM

This award will allow librarians at the Human Relations Area Files, a not-for-profit institution specializing in distributing databases of ethnographic data to libraries and universities, to issue the fifth edition of the Ethnographic Bibliography of North America. This is the standard bibliographic resource on Eskimos and North American Indians for scholars and students in anthropology and related disciplines. The fifth edition will contain about 60,000 citations and will be distributed to libraries on compact disks. Since the bibliography will be indexed by author, title, region, ethnic group and subject other more specialized bibliographies may be produced in the future. This project is important because bibliographies are the standard primary reference tool for scholars, and they must be periodically updated to contain the full representation of knowledge on the subject.